Mathematical Sciences: On Some Topics in Nonparametrics

Although data are most often recorded as observations at a single point, on many occasions the data are actually curves, for example a motion or a growth pattern or a development process occurring over time. The goal of this research is to develop statistical procedures which draw inferences from curves or estimated curves directly. In particular, this research is concerned with multivariate methods addressing problems in principal components analysis, canonical correlation, discriminant analysis and prediction.